ROW: An Approximate Query Processing System for Temporal Data

9308494 Vrbsky This is the first year funding of a three-year continuing award. A real-time system has specific time constraints for the processing of a database query as well as consistency requirements for its temporal data. If it is not possible to produce an exact answer to a database query by a specified deadline, approximate query processing can be used to provide an approximate answer within the time constraints, but it does not address the temporal dimension of the data. This project integrates the two areas of approximate query processing and temporal data models in order to design an approximate query processing system for temporal data. A new semantics of approximation is being developed to include the different types of temporal data and consistency requirements of a real-time database. The approximate relational algebra operations are extended to include new approximate temporal operations. The semantic information needed during approximate query processing to incorporate the temporal dimension and maintain consistency is being determined. The result of this project will provide a design for the implementation of an approximate query processing system that can be used in environments where data consistency must be maintained and deadlines must be met. ***